EMSW21-RTG: Graduate Education in Geometry and Topology at the University of Chicago

Abstract

Award: DMS-0354270
Principal Investigator: Kevin D. Corlette

This project will support activities of the geometry/topology
group at the University of Chicago which have an impact on the
training of graduate students. This group currently consists of
six senior faculty, thirteen junior faculty and about thirty
graduate students. The research interests of members of the
group span a wide array of topics in geometry and topology,
including complex differential geometry, rigidity and locally
symmetric spaces, connections of ergodic theory with discrete
groups and number theory, geometric group theory, 3-manifold
topology, Teichmuller theory, geometric topology of
high-dimensional manifolds, the moduli space of Riemannian
metrics, complex dynamics, symplectic topology and homotopy
theory. The activities of the group include active research
seminars in geometry/topology and algebraic topology, several
student seminars and a visitors program, all of which are
directly relevant to the education of graduate students. These
activities, in combination with the general structure of the
graduate program in the department, provide ideal conditions for
students to gain exposure to a broad range of current research
while pursuing their own specific research projects.

Geometry and topology are fundamental parts of mathematics which
are currently experiencing rapid development, with many new ideas
and lines of investigation being pursued. Many of these
developments are internal to the subject, while others arise, at
least in part, from contact with fields such as physics and
computer science. It is particularly exciting to be a student in
a field undergoing this kind of change, but it is at the same
time a challenge to orient oneself when the landscape is rapidly
changing. This project will enhance the ability of doctoral
students at the University of Chicago to learn about and do
research in these areas, thus helping to train the next
generation of researchers in geometry and topology. In addition
to providing direct support for graduate students as they do
research, the project will also provide support for graduate
students to travel to conferences and the bring visitors to the
University for seminar talks and collaboration. All of this is
intended to expose graduate students to the frontlines of
research as effectively as possible.